CCSS:Collaborative Research: Stochastic Modeling and Optimization for Cognitive Radio Networks

The objective of this research is to develop network protocols and optimization
techniques to efficiently utilize the spectrum white spaces for cognitive radio networks.
The proposed approach is based on a novel cognitive radio network (CRN) network
architecture under which effective design methodologies can be developed to take better
advantage of cognitive radio technologies in harvesting and managing unutilized
spectrum for better service provisioning.

The PIs will first study the proposed CRN architecture to enable collective spectrum
sensing and let the secondary service provider manage the harvested spectrum for better
spectral efficiency while shifting the design complexity from the user side to the system
side. They will then investigate how to split traffic over harvested spectral bands to
balance the risk and reward, how to optimally utilize the spectral resource by jointly
designing frequency allocation and routing while supporting traffic demands, and how to
maximize the throughput by joint link scheduling and routing. The proposed research
outcome will lay the solid foundation for practical implementation of CRNs, which could
potentially revolutionizes the way how cognitive radios should be more effectively used.

The research outcome will significantly advance the state of the art in CRNs, opening a
new avenue to designing smart living environments for public safety, disaster rescue,
mobile healthcare and online social networks to improve peoples quality of life.
Research findings will be disseminated through publications and talks, and in classroom
teaching. This project will also actively recruit and train minority students for future
workforce and mentor junior faculty.